Sensory Transduction: A Symposium at Woods Hole, Massachusetts; September 5-8, 1991

Sensory transduction is the initial step of stimulus reception in sensory systems, in which the capture of energy of a stimulus (such as a light, sound, touch, or chemical) is converted into a neural signal to be sent to the brain. This symposium will focus on the molecular mechanisms of sensory transduction, on the initial events in the receptor cells. The issues of stimulus sensitivity, discrimination, amplification, and adaptation will be covered for a several different sensory systems, by a multidisciplinary group of speakers and participants. This conference and the publication of the symposium volume will have an important impact across this currently very active field of sensory research in neuroscience.